Fundamental Understanding of Mechanics and Electromechanical Coupling in 2D Janus Layers

Atomically thin or low-dimensional materials are attractive for flexible electronics, sensors, memory, and other emerging technologies because they can be bent, stretched, and integrated into very small devices. Most low-dimensional materials studied to date are symmetric through their thickness, so their mechanical behavior is relatively well understood. This project focuses on a new class of atomically thin materials with distinct chemical compositions on their top and bottom surfaces. That asymmetry creates built-in internal forces and electric polarization that can fundamentally change how the materials bend, wrinkle, roll, and respond to mechanical forces. The project will determine how this broken symmetry gives rise to new forms of coupled mechanical and electrical behavior that do not exist in conventional ultrathin materials. The resulting knowledge can enable new approaches for mechanically adaptive electronics, ultrasensitive sensors, low-power memory, and reconfigurable devices. Broader societal impacts will also be realized through education, outreach, and knowledge dissemination. The “Forces at Play” program will engage K-12 students via hands-on demonstrations linking mechanical deformation and material function. Undergraduate and graduate students will be trained through immersive research experiences. Research outcomes will be broadly disseminated through accessible outreach content to inspire future engineers.

The research will establish a mechanics-based framework for asymmetric atomically thin materials and their stacked and curved architectures. It will investigate how surface-dependent internal stress alters elastic response, bending, wrinkling, fracture, and scrolling in single layers, bilayers, and rolled structures. The work will further determine how strain, curvature, interlayer alignment, and sliding modify electric polarization, piezoelectric response, and ferroelectric switching. Experiments will measure force-displacement behavior, wrinkle formation, local strain distributions, and nanoscale electromechanical response, while multiscale modeling will connect atomic-scale structure to mesoscale deformation and continuum behavior. In particular, atomistic calculations, molecular simulations, phase-field modeling, and continuum mechanics simulations will be integrated with nanoscale imaging and mechanical measurements to establish predictive links among composition, structure, deformation, and polarization. By revealing how asymmetry across atomic thickness governs coupled mechanical and electrical phenomena, the project will provide fundamental design rules for programmable ultrathin materials and broaden the mechanics of low-dimensional material systems.